Structure, Disorder and Dynamics in Crambin Crystals at Resolution

The goal of this proposal is to obtain a picture of a protein and its solvent at atomic resolution and to test how well the average position and mobility of atoms in the structure are modeled by molecular dynamics calculations. This can be accomplished experimentally by determining the protein's vibration and equilibrium structure using diffraction methods and theoretically by using empirical force fields. Crambin is a hydrophobic, plant protein (MW = 4720) that is unique because it diffracts beyond 0.83 A and has 99% of its diffraction data observed at this resolution limit. This means its structure can be determined free of the usual restraints of protein refinement. Although crambin's function is not yet known, it has activity as a local anesthetic. The above goal will be addressed using crambin by the following specific means: unrestrained refinement of the crambin model against the 0.83 A, 130 K and the 0.945 A, 300 K X-ray data; corefinement of neutron and X-ray data at 300 K; refinement of crambin X-ray data at multiple temperatures; full-crystal molecular dynamics simulations and comparison with the X-ray structure; and analysis of the methods to predict protein water structure. %%% This project provides a unique opportunity to obtain an experimental picture of a protein molecule, its surrounding solvent, and its dynamic movement in extremely sharp detail using single crystal X-ray diffraction. The fine features that are revealed can be tested against theories that are currently being used to predict and refine the architecture of proteins. The fact that crystals of crambin are extremely well ordered make possible the determination and testing of these details.